ITR: High Performance "Signal Processing" Antenna Array Systems for Wireless Communications

A new design methodology for multi-antenna wireless system is proposed. The essential idea is based on the fusion of technologies and concepts in the antenna design, RF circuit and device technology, real-time DSP technology and communication theory. To embody this idea, novel designs of high-performance "signal processing" array front-ends and the associated communication processing research are proposed. The proposed array front-ends cover a broad range of hardware from the antenna array, RF circuits all the way to IF or baseband outputs. As a testbed, we propose a receiving antenna array with a single RF-channel and Spatial MultIplexing of Local Elements (SMILE). The communication processing research is focused on the study of space-time propagation channels and the applications of Continuous Phase Modulation (CPM) coding scheme in a Multiple Input Multiple Output (MIMO) system based on the proposed front-end. Studies of system level issues in merging the hardware architectures and communication algorithms are also proposed. The interdisciplinary nature of this project ensures close interactions among faculty members and students from different disciplines. Hence, the project will benefit the curriculums and graduate research subjects in multiple areas such as microwave and RF technology, real-time signal processing and wireless communication.